QnTM: Harnessing Quantum Entaglement: Fundamental Studies, Communication Protocols, and Computing

This proposal targets a set of interdisciplinary tasks that directly address the challenges facing
the burgeoning field of quantum information processing (QIP). In particular, both foundational
work aimed at enhancing the understanding of fundamental underlying concepts, such as quan-tum
entanglement, as well as applied work, such as designing quantum algorithms that would
require only tens of qubits, while still providing better performance than their classical counter-parts,
are targeted. The technical approaches to be adopted in the proposed work encompass
a number of different fields, including quantum mechanics, quantum information theory and
concepts, theory of computation, combinatorics, and classical electromagnetic fields and related
computational methods.
Intellectual Merits: A number of fundamental challenges need to be overcome before QIP
can become a viable computing paradigm. This proposal addresses several of these challenges
in a novel fashion, including: (i) What kinds of quantum algorithms can one implement in
systems comprising tens of qubits? This is a very important issue facing the field of quantum
computation: a system comprising the thousands of qubits necessary to factorize integers beyond
the capability of existing classical computers is, at best, a long-term goal. In contrast, a system
comprising tens of qubits is a conceivable goal; however, would there be any quantum algorithm
that can be implemented on such a small scale computer and yet outperform classical algorithms?
The proposal presents a quantum algorithm that can be used to simulate Maxwell's equations to
determine classical electromagnetic mode frequencies of resonant structures, where the complete
mode field distribution is not required. It is estimated that 50 logical qubits would be sufficient
to produce useful electromagnetic simulation results. (ii) Is there life beyond Quantum Key
Distribution? The proposal presents results where the basic tools of quantum cryptography are
used to build a multi-participant protocol which gives the participants the ability to anonymously
announce classical information. This protocol is shown to be secure against any and all attacks.
This is the first ever multi-participant quantum protocol that uses a truly multipartite quantum
entangled state. (iii) What are examples of nontrivial new quantum algorithms (i.e., other
than Shor's factorization and Gover's search algorithms? The proposal reports results on the
development of efficient quantum algorithms for determining the permanent of unitary and
related matrices using the quantum optical model. A number of such critical open questions
related to QIP are addressed.
Broader Impacts: (i) Undergraduate Interdisciplinary Program: In collaboration with the Cal-ifornia
Nano-science Institute (CNSI) and the Department of Electrical Engineering at UCLA,
we are in the process of developing a nano-science interdepartmental program. Quantum in-formation
processing is a key component of this program and the NSF grant will be leveraged
to support this initiative, and in training graduate and undergraduate students. (ii) Annual
Workshops On Quantum Information Processing: In collaboration with the NSF Institute of
Pure and Applied Mathematics (IPAM) at UCLA, an interdisciplinary annual workshop on
Quantum Information Processing and Computing will be held. (iii) Providing Support for
Implementation-Oriented DARPA projects on Quantum Computing: Dr. Roychowdhury is the
principal theoretician for a large interdisciplinary experimental group at UCLA working on de-veloping
solid-state based quantum information processing technology. The experimental effort
is currently supported by grants from DARPA and ARO, and the NSF grant will leverage the
existing program and focus on transferring theoretical results to the experimental groups. (iv)
Outreach and Minority Student Participation: Both IPAM and CNSI have institutional infras-tructures
in place to attract minority and K12 students, and we plan to engage them and train
them through seminars and free access to our workshops.